IUC: Investigation of Nonlinear and Dispersive Effects in Electron Bean RF Field Interactions

Crossed field devices have been a major part of the microwave region for nearly two decades. Because there is great interest in even higher power, research undertaken to explain the present empirical results is of potentially great use. The research in progress adresses the nonlinear theory to model the interaction dynamics.